Radioisotope Monitoring Program for the United States Academic Research Fleet

This project provides funding for the Radioisotope Monitoring Program (SWAB) for the United States Academic Research Fleet (ARF). The ARF, operated by academic institutions within the University-National Oceanographic Laboratory System (UNOLS), supports critical scientific research in the oceans, Great Lakes, and polar regions. The SWAB program at the University of Miami provides standardized tools and protocols that enable scientists to collect clean, uncontaminated ocean samples during research cruises. By ensuring consistency and quality across studies, SWAB strengthens the reliability of oceanographic research and allows scientists to better understand marine ecosystems, climate change, and ocean health. The program also preserves samples for future use, extending their value to new research questions and technologies.

The SWAB Program at University of Miami provides standardized, high-quality sample collection kits and contamination control protocols for oceanographic research cruises across the ARF. It enables consistent acquisition of uncontaminated seawater and microbial samples, supporting reproducibility and comparability across studies. SWAB also serves as a centralized archive and distribution system, extending the scientific value of collected samples for future research.